Enhancement of Weather Analysis and Forecasting Laboratory

The University of Northern Iowa seeks funding to replace obsolete equipment. UNI will replace the obsolete equipment with current Unidata systems such as McIDAS and GEMPAK. Currently, UNI is still running the outdated OS/2-McIDAS system. With the new equipment, opportunities will be expanded for student use of real-time atmospheric measurements within existing courses and in research. In addition, meteorology courses will be enhanced to provide greater research opportunities for undergraduate students and faculty in the area of atmospheric sciences.